Solving Polynomial Systems by Polyhedral Homotopies

The project is aiming at solving polynomial systems numerically by the
homotopy continuation method. Over the years, practical evidences have been
given that the homotopy method is efficient, reliable and much powerful in
solving polynomial systems. Recently, modeling the sparse structure of a
polynomial system by its Newton polytopes leads to a major computational
breakthrough called the polyhedral homotopy method. Based on it, a source
code HOM4PS, produced by the PI and his students, leads all the other
existing codes for solving polynomial systems in efficiency and storage
requirement by a great margin. Nonetheless, there are numerous models of
large polynomial systems in application still do not have a satisfactory
line of attack. And it has become apparent that the numerical techniques for
following homotopy paths are far from thoroughly developed for large
systems. The essence of the project is the advance development in all
aspects of the solver HOM4PS based on the conduct of further research to
greatly enlarge the scope of its applications, especially applications to
large systems.

The problem of solving polynomial systems arises very frequently in various
fields of science and engineering, such as formula construction, geometric
intersection, inverse kinematics, robotics, power flow problems with
PQ-specified bases, vision and the computation of equilibrium states of
chemical reaction equations, etc. This topic has been an important research
subjectin Europe. In the last decade, a considerable research effort
involving seven countries and twenty universities had been directed to this
problem in two consecutive major projects, PoSSo and FRISCO, supported by
European Commission. As mentioned above, the code HOM4PS developed by the PI
for this problem is far more advanced and the ultimate goal of the current
project is a more complete high-quality block-box software which will
incorporate the best state of the art to provide the general scientific
community a reliable source for solving polynomial systems on a wide variety
of advanced architectures.